Interactive Computerized Information System (ICIS)

The Franklin Institute Science Museum will develop, install and evaluate a museum-wide Interactive Computer Information System (ICIS) designed to enhance visitors' exhibit learning through museum-wide visitor information access and connectivity. ICIS will provide educational experiences for 1.2 million people per year, tailoring its information presentations to individual visitor needs and levels of knowledge. Exhibit based units will add advanced presentation functions beyond the usual graphics and text labels. ICIS will include 67 touchscreen-operated computer stations and six min- computers linking 27 exhibit areas in The Franklin Institute. This project is a collaboration between The Franklin Institute and the Unisys Corporation, which will provide over a five year period systems engineering, hardware, installation, maintenance and training of museum personnel valued at $2.4 million. An extensive evaluation plan will include studies of visitor-computer interaction, the economics and management of system maintenance, collaboration between museum and corporation and effectiveness of computer-based exhibit interpretation techniques. Project results will be disseminated through conference presentations, seminars and published articles.